Dissertation Research: Fungal Mediation of Plant-Insect Interactions

Many factors are known to influence the abundance and diversity of insects that feed on plants. These include host plant characteristics such as nutrition and secondary compounds, attack by predators/parasites, and abiotic factors such as temperature and humidity. Microorganisms such as bacteria, viruses, and fungi commonly associated with plants can also influence where insects settle and how well they fare. One class of microorganisms, endophytic fungi, live benignly within leaf tissues but appear to protect plants from insect attack by producing deterrent toxins. This idea has not been broadly tested however, particularly in plants other than grasses. Toward this end, the role of endophytic fungus (Chaetophoma quercifolia and several other species) in colonization, dispersal, and survival of a leafmining insect (Cameraria sp. nov.) and the southwestern tent caterpillar (Malacosoma incurvum) on Emory oak (Quercus emoryi) will be studied. The following are to be investigated: 1) how the distribution of fungi, insects, and plant characteristics are related, 2) seasonal and yearly variation in the diversity and abundance of fungi, 3) if endophytic fungi affect survival and growth of leafminers and other oak-feeding insects. This work will serve to address fundamental ecological questions, as well as increase our knowledge and understanding of microorganisms as potential biological control agents.